SGER: Geological and Geomorphic Investigations of Impacts of Rapid Fall of Lake Powell at the Colorado River Delta

Due to the eight year drought in the western United States, the water line for Lake Powell has dropped to a record low exposing the delta developed over the last 37 years at the upstream entrance of the Colorado River into the lake. This provides a short term and unparalleled opportunity to study the processes of sediment deformation caused by lake-level fall, the response of a large river to a significant base level drop over a short period of time, how sediments are transported from the delta to the lake, and to establish a base line of the distribution of sediments at the delta. PIS plan to involve a multidisciplinary group of scientists to investigate this ephemeral opportunity.